ES Postdoctoral Associateship: Compile Time Support for Efficient Distributed Shared Memory

This award is for a postdoctoral associate in Experimental Science. The associate, Sandhya Dwarkadas, will be working on compiler run time techniques for network multicomputers.